Precision Measurements of Parity Violation

This grant supports research to measure the weak charge of the proton and then use that
measurement to investigate new aspects of the Standard Model of fundamental matter and
interactions. The Standard Model describes three of the four forces of nature in an elegant
manner; those three forces are the electromagnetic interaction, the weak interaction, and
the strong interaction. The weak charge of the proton is a basic property, like its electric
charge and mass, which determines the proton's response to the weak interaction. It is also
related to how the weak and electromagnetic interactions mix with each other. Because
the Standard Model makes well dened predictions of how that mixing varies with the
amount of momentum that is exchanged in an interaction, with only one set of very precise
measurements existing at very high values of momentum transfer, a precise measurement
of the proton's weak charge at a low value of momentum transfer is a rigorous test of the
Standard Model. Additionally, it is sensitive to physics not yet included in the Standard
Model.
The Qweak experiment at JLab will carry out this precise measurement by scattering
polarized electrons from protons and measuring the rate at which they scatter. Extracting
the weak charge of the proton from this scattering will require delicate calibrations with
specialized equipment. The research group supported by this grant is developing a detector
that will trigger all the other detectors of the calibration phase, as well as integrating all
components of the calibration phase. Both hardware and software issues will be addressed in
this project so the students and postdoctoral researchers will gain a wide range of valuable
skills.